Computed Tomography and Sampling

This project involves research in computed tomography,
advanced Shannon sampling theory, and applications of sampling
theory in tomography. It combines theoretical investigations,
numerical analysis, and computational experiments with real world data.
Computed tomography is a technique which produces
images of the interiors of opaque objects. It is widely used
in applications ranging from diagnostic radiology to research
in quantum optics. Mathematically it requires the reconstruction
of a certain density function from its line integrals. Ordinary
tomography is not local: reconstruction at a point requires integrals
over lines far from that point. For a number of applications it is highly
desirable if only integrals over lines intersecting some region of interest
need to be used ("region-of-interest tomography" or "local tomography").
Shannon sampling theory plays a fundamental role in signal processing.
In tomography sampling theorems are used to identify efficient data
collection schemes allowing for maximum resolution in the reconstructed
image, as well as for error analysis of reconstruction algorithms.

The project's research in tomography involves interdisciplinary
collaboration and is inspired by the question
"What features of the density function can be stably recovered
from a given collection of its line integrals?". Specific goals include
the identification and analysis of optimal sampling schemes in
three-dimensional tomography; the analysis of reconstruction algorithms
for three-dimensional local tomography with sources on a curve;
further development and numerical analysis of high-resolution reconstruction
algorithms in two dimensions, and development
of a software package for region-of-interest tomography.
The research in sampling theory is stimulated by applications in
tomography and involves the development and application of new
sampling theorems for non-equidistant data;
estimates for the aliasing error in various settings;
and further exploration of a generalization of the
sampling concept in the framework of locally compact abelian groups which
provides a unified view of a number of diverse applications.